CI-P: Computer System Failure Data Repository to Enable Data-Driven Dependability Research

Dependability is a requirement for computer systems; however, research
on dependable systems is hampered by a lack of real and publicly
available failure data. This can result in productive paths of
research being closed to most researchers and, conversely,
unproductive research being performed due to faulty assumptions about
the manner in which real systems fail. The goal of this project is to
plan a collaborative effort to collect, curate, and provide public
access to failure data for large scale computer systems through a
community repository. One challenge is that failure data is
considered sensitive by the owners. The ultimate goal of this project
is to collect the data from some of the NSF-funded large
cyberinfrastructure projects, such as NEES, LIGO, XSEDE, and NRAO.

The specific goal of this planning project is to collect requirements
from potential praticipants (both users and contributors of data sets)
and seed a prototype repository with data sets from two of the largest
and latest clusters at Purdue. The data sets will comprise static
information, dynamic information about the workloads, and failure
information, for both planned and unplanned outages.

The broader impact in the project will be achieved through the
dissemination of the data sets to a wide variety of researchers, and
perhaps even, practitioners. The datasets will let people run their
campus clusters more efficiently, i.e., with fewer failures, at higher
utilization and energy efficiency.